Collaborative Research: Modeling the Social Actor

This research is based on a comprehensive multi-scaled,
multi-disciplinary approach to study complex information age issues that
involve the combination of people and the information and communication
technologies they use. This study extends work on social actors,
developed through prior NSF-funded research. The social actor is an
empirically derived model of people+ information and communication
technologies (ICTs). To make this model useable for a wider community of
researchers and policy- makers, who need robust models with solid
measures of attributes and behaviors that conflate people and their
technologies, some formalization of the social actor is required. Using
metrics derived from institutional theory, appropriate measures based on
social actor concepts will be developed and related to formal models and
theories of cognitive understanding and collaborative decision making to
establish a better basis for reasoning about ICT-infused environments. A
theoretically supported, empirically grounded, social actor model will
then be used to simulate dynamic agents, with scenarios developed in
collaboration with RAND organization researchers. The empirical work
will involve modeling social actors as people + IC in organizational and
institutional settings using agent-based systems (ABS). Agent-based
modeling allows a researcher to examine complex adaptive systems with
sophisticated computational models that integrate empirical research and
formal modeling. These systems help researchers and policy-makers
explore the dynamic issues that attend the complex interactions of
collaborative and competitive social units.